Involvement of an endosymbiotic Methylobacterium sp. in the Biodegradation of Explosive RDX and HMX inside Poplar Tree (Populus deltoides x nigra) - Revised Version 05-28-03

0337208 Schnoor The degradation of environmental contaminants by the combined action of plants and microbes has been recognized as a promising bioremediation appraoch but is underinvestigated. In particular, the contribution of endophytic bacteria is largely unexplored. The investigators identified a neat system to explore the contributions of an endophytic bacterium to the degradation of energetic compounds. The proposed research effort is likely to provide exciting new results and insights into contaminant degradation by a plant-microbe interaction. Hypothesis 2 appropriately addresses key questions and the objectives are likely to produce meaningful results.